Cohomology of Exponential Sums

Exponential uses have many uses in mathematics. Historically, they
arose in problems in number theory. More recently, they have found
applications in cryptology and coding theory. The main question that
arises is to find sharp upper bounds for the absolute value of an
exponential sum. The standard approach, based on P. Deligne's
fundamental work on the Weil conjectures, is to compute the l-adic
cohomology groups associated to the exponential sum. Recently, the
investigator and his collaborator computed the p-adic cohomology of
some new classes of exponential sums. The calculations indicate that
these classes of exponential sums should have "good" upper bounds.
The investigator plans to search for more such classes of exponential
sums and try to compute their l-adic cohomology, thus obtaining the
desired upper bounds.

Exponential sums originally arose in basic problems in number theory,
such as trying to find the number of integer solutions to a given
equation. Usually it is very difficult to find the exact number of
such solutions, so the next best thing is to approximate that number.
It was discovered that this question could often be reduced to the
problem of estimating the size of certain sums of complex numbers,
called "exponential sums." A substantial theory has developed over
the years to deal with this subject, and it has found modern
applications in the fields of cryptology and coding theory. The
investigator has discovered new classes of exponential sums which he
believes it should be possible to estimate. He will try to extend the
existing theory to cover these new classes.